REU Site: Research Experiences for Undergraduates in Physics and Astronomy at the University of Toledo

The NSF REU project at the Physics and Astronomy at the University of Toledo is a vibrant hub of innovation and learning, supporting 10 students in their exploration of critical scientific domains including Astrophysics, Atomic/Molecular/Optical Physics, Biological/Medical Physics, Condensed Matter/Materials, and Computational Physics. This program directly contributes to the progress of science by addressing foundational questions in these fields, from unraveling the mysteries of the universe to pioneering advancements in renewable energy through thin films and photovoltaics. By fostering a diverse cohort of intellectually curious minds, the project not only propels scientific discovery but also cultivates a skilled workforce poised to advance national health, prosperity, and welfare. The program’s commitment to inclusive excellence and hands-on research equips students with the tools to drive innovation, inspires a broader participation in STEM fields.

The NSF REU project at this Physics and Astronomy site is an intensive ten-week summer program designed to immerse ten selected REU students from across the US in advanced research across a spectrum of specializations, including Astrophysics, Atomic/Molecular/Optical Physics, Biological/Medical Physics, Condensed Matter/Materials, and Computational Physics with a focus on thin films and photovoltaics. REU students are mentored by professors, postdoctoral researchers, visiting scientists, and graduate students. The program's goals are to advance knowledge in these critical areas, foster innovation, and cultivate the next generation of researchers. Students are expected to commit full-time effort to their research, utilizing a blend of experimental, theoretical, and computational methods under the mentorship of experienced faculty. The program's structure includes mid-term progress talks, a final department-wide presentation, and the writing of a detailed final report or publication. Complementing the research are weekly seminars and workshops designed to enhance professional development, covering topics from lab safety and ethics to graduate school applications and career planning. This comprehensive approach ensures that students not only contribute significantly to their fields of study through research but also develop a robust set of skills and insights, positioning them to excel in future academic and professional endeavors.